Doctoral Dissertation Research: Crossing Borders in the Information Age: The Impact of Highly Skilled Migrants on US Labor Market Outcomes

This dissertation investigates the impact of high-skilled immigration on the earnings and employment of high-skilled native U.S. workers. It uses Census PUMS and March CPS data to describe trends in the highly-skilled labor market and to analyze the effects of proportion immigrant on earnings and employment in those labor markets. Highly skilled workers are defined primarily as those with higher education working in occupations with high average education. Multilevel models are used to estimate the effects of labor market variables on the individual employment and earnings outcomes.